Multiuser Coding and Signal-Processing for Fiber-Optic WDM Communication Systems

Multiuser Coding and Signal-Processing for Fiber-Optic WDM
Communication Systems
by Maite Brandt-Pearce
University of Virginia

Abstract:

The need for high speed data transmission has motivated the desire to
utilize the full capacity of optical fibers. The fiber optic channel
holds the potential for information transfer orders of magnitude faster
(in bits per second) than is currently exploited. Signal degradation
through the fiber channel is a key problem in accomplishing high
capacity, especially in long-haul links (transcontinental or
transoceanic) and large networks. This research explores pre- and
post-fiber coding and signal processing possible to reduce the effect of
channel degradation. Mastering these physical limitations of the fiber
medium can translate into a tremendous increase in the capacity of
existing infrastructure.

This research addresses the design and optimization of multi-channel
wavelength division multiplexed (WDM) fiber-optic systems. Multiuser
systems are typically broadband and high power, sometimes leading to
severe linear and nonlinear degradation in the signal due to properties
inherent to the fiber. The approach taken is a communications theoretic
approach, considering signal constellation, coding, channel
equalization, and joint signal detection. The research is to be
performed in three phases. The first is to identify best and worst
time/wavelength sequences for WDM. Effective jointly optimal line-codes
for WDM systems will then be designed. The research will conclude with
a study of nonlinear equalization methods for crosstalk cancellation.
The tools used for optimization and system performance analysis are
input/output descriptions of the fiber nonlinearity and system
simulation.